Magnetohydrodynamics of stellar interiors

AWARD NO: AST-0607495
PI: Pascale Garaud
INSTITUTION: University of California Santa Cruz
TITLE: Magnetohydrodynamics of stellar interiors
ABSTRACT
This research is part of a long-term project to better understand the magnetohydrodynamics
of stellar interiors. Towards this end, a 2-dimensional dynamical structure
and evolution code is being constructed which incorporates the interaction between largescale
magnetic fields and flows. The effects of small scale fields and flows are also
modeled through turbulence closure. Here the PI will continue developing the core
numerical algorithm (which is already producing results concerning the dynamics of the
solar radiative region) and testing the closure model (which has been successfully tested
against experimental data for rotating shear flows). Specific tasks to be undertaken
include: 1) Developing computational methods to extrapolate numerical results to solar
values of the various diffusion parameters and testing them against solar observations. 2)
Further improving and extending the existing closure model to take into account turbulent
energy transport and testing the model predictions against 3D numerical simulations of
rotating convection. And 3) combining the radiative zone model with the turbulence
closure model to obtain a complete numerical algorithm designed to study the magnetohydrodynamics
of the interior of a solar type star, and obtaining qualitative results for a
variety of stellar parameters (structure, internal field strength, rotation rate). Future
planned work will then investigate in turn: the stability of the models obtained to various
kinds of axially symmetric and non-axially symmetric instabilities; the dynamical
behavior of the model with respect to the generation of a magnetic cycle; and the careful
quantitative comparison with existing data from various sources (e.g. asteroseismology,
Doppler Imaging, Mount Wilson Ca-line survey).
The modeling approach being developed will include geometric aspects of the dynamics
(missing from 1D models) without the heavy computational load of 3D models. Thus the
work here will be of value to many other areas of astronomy - particularly
asteroseismology and studies of the solar interior where the sophistication of the
observations now demand better models. Therefore, once fully developed, these tools will
be made available to the astronomical community. This work also supports a graduate
student who will be trained in numerical magnetohydrodynamic modeling and
interpreting/comparing these results with observations.